A Combinatorics Conference in Honor of Richard Stanley

Richard Stanley is one of the major figures in combinatorics. His work has
been of fundamental importance in many areas of combinatorics (especially
in the areas of enumeration, lattices and partially ordered sets,
matroids, and hyperplane arrangements) and in connections between
combinatorics and other fields such as commutative algebra, algebraic
geometry, representation theory of symmetric and classical groups and Lie
algebras, and topology. In addition, his two-volume textbook "Enumerative
Combinatorics," and his advising of numerous students, have been
enormously influential in the development of the field.

This conference will put into perspective some of the important advances
that have come from Stanley's work, and bring together researchers in the
different areas of combinatorics in which he has worked. The conference
will enable researchers in these fields to learn from each other, and will
promote further development of the connections between different areas of
combinatorics and between combinatorics and other areas of mathematics.
Support from the NSF will be used to fund travel expenses of
participants, especially those who would not otherwise be able to attend.
Funding of travel expenses for researchers in early stages of the their
careers will be a priority.